Preconditioning Techniques for Algebraic Equations Arising from Partial Differential Equations

Elman

This project concerns the development, analysis and testing of techniques
of numerical linear and nonlinear algebra for solving systems of equations
arising from discretization of a collection of partial differential equations.
The emphasis will be on preconditioning strategies and their combination
with Krylov subspace iterative methods for linear and nonlinear systems.
These ideas will be applied to several examples of differential equations,
primarily coming from models of fluid dynamics. Our focus will be on two
types of problems, the saddle point problems produced by direct discretization
of the primitive formulation of the incompressible Navier-Stokes equations,
and the convection-diffusion equation. These have been chosen because they
are used in numerous engineering models of fluid flow, and because they contain
challenging mathematical and computational qualities that make them difficult
to solve. In particular, accurate discretization in two and three dimensions
leads to large sparse systems of algebraic equations that are nonsymmetric,
and for the first problem, nonlinear and indefinite. In addition, they have
associated with them fundamental parameters such as Reynolds numbers and
discretization mesh widths that, for the solution of problems of practical
interest, cause many algorithms to converge slowly and require large-scale
systems to attain accuracy. Our goals are to extend and analyze certain
preconditioning techniques designed for saddle point problems. Plans include
demonstration of the effectiveness of these preconditioners for general mixed
finite element discretizations, development of rigorous mathematical techniques
for analyzing convergence, demonstration of their usefulness in realistic
settings involving general meshes and domains, and incorporation of fast
algorithms for the convection-diffusion equation into the solution process.

The purpose of developing computational algorithms is to enable the
efficient numerical solution of differential equations used in mathematical
modelling. The use of such models is becoming an increasingly important
component in manufacturing and design (for example, of aerospace vehicles,
automobiles, cooling devices for nuclear devices) and in enhancing our
understanding of critical natural phenomena (for example, blood flows and
dispersal of environmental pollutants). Understanding these phenomena
through purely experimental techniques is prohibitively expensive or
impossible, whereas the use of mathematical models introduces a basic
understanding of the physics by providing approximations to quantities
such as flow rates and pressures. This leads to the identification of
promising design features, such as wing shape in airplane manufacturing.
(For example, many of the design decisions for the Boeing 777 jet were made
using computational studies.) Accurate solution of the mathematical models
is only feasible, however, if reliable and fast solution algorithms are
available. The goal of this project is to develop such algorithms.